MRI Acquisition: A Reconfigurable Computing Infrastructure Enabling Interdisciplinary and Collaborative Research in Hampton Roads

This project acquires a reconfigurable computing system that wiil support a broad spectrum of research projects in an appropriately tailored computer environment using state-of the-art technologies. It offers substantial computational power to support a number of critical research initiatives at the institution.

This infrastructure, named DISCOVER, enables big data and high-performance computing research. Three key thrusts are emphasized: Cybersecurity, Resilience, and Data Intensive Science and Engineering. Each thrust includes multiple applications, as follows.

Cybersecurity: hardware security for cryptographic circuit verification; modeling learning with homomorphic encryption; malware and anomaly detection; and modeling cyber-attack paths and their mitigation.

Resilience: computational simulations to model sea level rise; understanding social media for emergency preparedness for natural disasters; and data-driven understanding of massive geospatial traffic patterns.

Data Intensive Science and Engineering: high-accuracy finite element mesh generation; analysis of brain imaging and image-guided surgery; and modelling of power-consumption and resource allocation for high-performance computing clusters.

The acquired computing system will stimulate multi-disciplinary collaborations with other institutions in Hampton Roads, including Norfolk State University, Tidewater Community College, and Thomas Nelson Community College. Training workshops and a summer institute will be organized to help students in various research fields to gain high-performance computing skills. The insitution will leverage the National Initiative for Cybersecurity Education (NICE) framework to address cyber workforce needs by increasing the pipeline of students pursuing cybersecurity careers.